Special Issue of ASEE's Journal of Engineering Education (JEE)

EEC 9712022 American Society for Engineering Education Frank Huband, PI ABSTRACT The purpose of this award is to support a special issue of the American Society for Engineering Education's Journal of Engineering Education (JEE) devoted to projects supported under the Technology Reinvestment Project Manufacturing Education and Training Program and the National Science Foundation Combined Research-Curriculum Development Program. Papers are to be submitted to and peer reviewed for this special issue in the same manner and in accordance with the same standards as other papers regularly submitted to the JEE.